Simulation of Coil Wedge Effects in Sheet Rolling

The research objective of this award is to investigate and simulate the dynamic effects of coil wedge in sheet rolling and coiling operations using a new mixed finite element method. The research approach is to use a rapid, new mixed finite element model to predict the rolling mill deflection. Combining this novel method with coil winding models, industry data, and stochastic analysis will enable a thorough investigation of the coil wedge problem. The research effort will integrate the rapid new mixed finite element model with operating data and expertise of two mill manufacturers and a major metal producer.

If successful, the benefits and broader impacts will include the ability to roll superior products with greater efficiency and reduced energy. The research results will directly benefit the producers of specialty flat-rolled metals and the manufacturers of specialty rolling mills. End users of higher quality, more efficiently-produced steel, aluminum, copper, and brass coils will also benefit from the research. Furthermore, the work will expose diverse student groups to metals manufacturing curricula and exciting metals industry research. Wright State will leverage its existing outreach programs to encourage women, minorities, and students with disabilities to conduct work in the metal rolling field, and prepare for enhanced career opportunities. The simulation results, which explain the dynamics of coil wedge problems, will be broadly disseminated to the research community through journal publications and conference presentations.